Stochastic dynamics of cortical networks

The collective activity of brain cells—neurons—governs sensory perception, motor action, and cognitive functions. Understanding the mechanisms governing these functions is the central challenge of modern neuroscience, with implications both for treating disease and engineering thinking machines. Indeed, modern machine learning architectures were inspired by highly simplified models of biological neural networks. These machine neural networks have impressive capabilities, which have scaled with their energy, computing, and training resources. Biological neural networks, on the other hand, operate under strict resource constraints. This project aims to develop theoretical tools to understand how the biology of neurons and synapses shapes their collective function. The project will train students at the interface of neuroscience and mathematics, and its results will be implemented in open-source software. The results also connect directly to AI and machine learning by providing a new basis for designing new units and architectures inspired by biological networks.

In recent years, we have learned a great deal about the types of mammalian neurons and how they interact with each other. Simultaneously, new recording technologies expose new details of neural activity in vivo. These new data enable formal theoretical frameworks directly linking neural and synaptic biology to collective dynamics. This project aims to develop such a framework using tools from statistical field theory, applied to soft-threshold neuron models. The research will study nonlinear integrate-and-fire models, fit them to large-scale public datasets, and use these to construct network models of mouse cortical networks. The project develops a statistical field theoretical treatment of these networks that exposes mean-field limits and approximations, as well as graphical algorithms for the fluctuation expansions for arbitrary observable statistics. The work combines applied stochastic processes and dynamical systems with biology and neuroscience, while connecting to machine learning through new trainable neural networks derived from biological models.